Modern Physics in Introductory Levels with Lasers

Capitalizing on the students' interest in computers and modern scientific equipment can lead to exciting experiments for the introductory laboratory. Microprocessor-based laboratories have the potential to treat complex and interesting physics problems at the lower levels through enhanced data taking and analysis and through computer-aided instruction. This project introduces modern physics into the laboratory curriculum of the calculus- based, the algebra-based, and the "physics for poets" levels. Modern Physics and Quantum Mechanics are being taught at these introductory levels through the use of energy level diagrams and other conceptual devices. Spectroscopy and laser physics offer a way to bring these concepts into the laboratory. Such laboratories as lifetime measurements, optogalvanic effect, and fluorescence studies are being modified for use at these levels. Monochrometers with computer interfaces and dye lasers serve as the basis for this request since the microprocessor- based laboratories are already integrated into the curriculum. This project has the potential to affect more than 300 students per year directly.